CLIVAR Project Offices

0004049 Mooney

The purpose of this inter-agency transfer to the National Oceanic and Atmospheric Administration is to provide support to the U.S. and the International Project Offices for the Climate Variability and Predictability Program of the World Climate Research Program respectively located in Washington, DC and Southampton, U.K.